U.S.-Poland High Energy Physics Research on Precision Vertex Detectors.

The primary objective of this U.S.-Poland cooperative research project between Dr. Alan Litke of the University of California at Santa Cruz and Dr. Michal Turala of the Institute of Nuclear Physics, Krakow, is to develop a means for detecting and identifying short-lived particles, including charm hadrones, bottom hadrons and tau leptons, which emerge from high energy collisions. In addition to contributing to progress on a prototype vertex detector, the results of the project are expected to produce measurements of the decays of the Zo into heavy quark-anti-quark final states. The researchers also anticipate that their efforts will contribute to the fundamental search for the top quark. This project in particle physics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.